Mathmatics Laboratory Instrumentation

An expanded calculus program is being offered which utilizes a sequence of courses integrating lectures with computer lab experience. The laboratory is dedicated solely to mathematics computer exploration, incorporating technological advances and a focus on concepts over calculation. The computer lab setting is used to reinforce concepts discussed in the classroom, and to enable students to discover calculus in a hands-on experience.